Lipid Metabolism and Photosynthesis in Fatty Acid Mutants ofArabidopsis

9407902 Browse The acyl lipids of chloroplasts contain characteristically high proportions of trienoic fatty acids. However, the free radical by- products of the photosynthetic light reactions can lead to oxidation of polyunsaturated fatty acids. Because this might be expected to mediate against a high degree of unsaturation, it has been inferred that trienoic fatty acids must have some crucial role in supporting photosynthesis. Other unusual lipid features typical of chloroplasts have provoked similar speculation about membrane structure and function. To approach this research area in a novel way, a series of Arabidopsis mutants with specific alterations in leaf fatty acid composition have been isolated. In the last six years, these have provided a means to study both the synthesis of chloroplast glycerolipids and the physiological significance of membrane lipid composition. This proposal describes experiments in which the mutants and the desaturase genes will be used together to produce plant lines with progressively more severe alterations in thylakoid lipid composition. These lines will be studied under a range of environmental conditions using non-invasive chlorophyll fluorescence techniques, assays of photosynthetic electron transport, and measurements of membrane fluidity. These experiments will provide data on the minimum levels of particular fatty acid types that are needed to sustain chloroplast function. They should also reveal which photosynthetic processes are most susceptible to membrane disruption. The improved understanding of membrane lipid metabolism and photosynthesis that will result from this work are important prerequisites to modifying these processes for increased plant productivity. ***